Postdoctoral Research Fellowship in Chemistry

Mr. Steven Antony King has been awarded a Postdoctoral Research Fellowship in Chemistry. Mr. King's doctoral degree will be from Stanford University under the supervision of Professor Barry M. Trost. He intends to continue his research at Princeton University under the supervision of Professor Jeffrey Schwartz. Mr. King's area of postdoctoral research will be the effect of gross structural changes on the reactivity of metalloazines and exploration of polyether alkoxide ligands in transition metal chemistry.